Upgrading the Oceanographic Gear of the R/V Westward: A Multi-User, Multi-Component System

Sea Education Association will underake a Research in Undergraduate Institutions (RUI) instrumentation acquisition project. Modern oceanographic instrumentation will acquired and placed in a pool of shared use equipment and made available to students and visiting users of the Association's Sailing School Vessel, WESTWARD. After an extensive refurbishment, the vessel will resume undergraduate education and research projects through SEA's ongoing programs. The new instrumentation will upgrade educational capabilities by enabling students to have practical, hands-on experience with modern oceanographic instrumentation, and will provide visiting scientists with a well equipped facility for conducting research. Provided instrumentation are basic to physical, biological, chemical, and geological oceanographic investigations and commonly found on many research vessels.